Laboratory for Interdisciplinary and Cooperative Education in Geographic Information Technologies

This project focuses on improving the Laboratory for Geographic Information Technologies, enabling the department to create a more comprehensive curriculum in geographic information science for undergraduates, implement an information technology literacy project in the Department of Geography, promote interdisciplinary group learning and research in the areas of geographic information technologies, and develop a cooperative education program in geographic information technologies involving the university, governmental agencies, and private industries.